STTR: Automated Biosensor-Based Biological Oxygen Demand Analysis System

9523188 Weber This research is to develop an automated biosensor-based Biological Oxygen Demand (BOD) analysis system. This system will contain a sampling module, a sensor module, and a control-data acquisition module. The sampling will take place through flow injection, with the option of batch sampling. Biosensors will be placed in this cell to detect a wide range of compounds. Sensors to measure pH, conductivity, turbidity, and dissolved oxygen may also be included. An embedded microcomputer will control these components and be designed to acquire, display, analyze, and store data. The successful completion of this instrument will solve the current inability to do reliable measurement of BOD organics in real-time for water and waste treatment. This will allow maximization of waste remediation and minimization of waste discharge to reduce pollution of waterways.